MSPnet: An Electronic Community of Practice Facilitating Communication and Collaboration

This project will establish a web-based, interactive electronic community
to build capacity and enrich the knowledge base of the MSP projects and the
Learning Community of which they are a part. Specifically, MSPnet will 1)
expand MSP projects access to, and ability to share, resources, emerging
research, tools, best practices, obstacles and strategies; 2) strengthen
geographically dispersed partnerships by enhancing and sustaining dialogue
through innovative collaborative tools, events and structures; 3) create a
growing archive, for both researchers and practitioners, of the lessons and
accomplishments of the MSP program; 4) enhance the public's access to, and
knowledge of, the MSP program; 5) conduct research on the impact of on-line
formats, functionalities and structures to enhance large scale education
reform efforts.